Digital Image Based, Computer Assisted Training in Human Skeletal Biology

The Anthropology Department is developing, evaluating, and disseminating digital image based, computer-assisted laboratory education in human and primate skeletal biology. Satisfactory laboratory experience for introductory skeletal biology students is precluded at most colleges and/or universities as a result of limited collections of instructional specimens, which cannot be appropriately expanded. The present project seeks to utilize recent developments in digital image storage and display technology to enhance the Skeletal Explorer Video- Disk System for MS-DOS Workstations; to develop a parallel Skeletal Explorer application for Apple Macintosh workstations; and to develop, validate, and disseminate laboratory instruction materials specifically designed for introductory courses, at educational levels ranging from community college through research university.